Surface Chemical and Thermally Activated Processes in Fatigue Crack Initiation

Several critical issues are examined related to fatigue crack initiation and microcrack growth. Included are the effects of subsurface environmental species on fatigue; the role of surface reactivity on fatigue life; theoretical analysis of the slip band spacing; and effects of material type. The significance of subsurface incorporation of environmental species on fatigue is determined by measuring fatigue crack initiation in selected gaseous environments (oxygen and other selected gases). The correlation between slip band spacing and fatigue life is examined to extend current theory on periodic slip band arrays and their influence on crack initiation.